Moisture-Assisted Crack Propagation at Polymer Interfaces

9301761 Ritter The role of moisture in enhancing delamination of model polymer- bonded systems is studied experimentally and analytically. Model systems in which the crack driving force and the loading are variable are tested in differing moisture environments. A range of important adhesives and techniques for modifying the adhesive bonding on interfaces are examined. A subclass of adhesives that delaminate by finger-like growth on the interface are included in the studies. Adhesive properties, treatment of the interface, thickness of the adhesive layer, and moisture environment are variables under study. Finite element techniques are employed to model the systems, which can have multiple cracks and different crack growth rates. Crack shielding in multiple crack systems and the role of focussed crack process zones in thin layers of adhesives are considered. %%% Understanding and minimizing the effect of moisture on the bonding characteristics of these systems is of obvious importance to the application of polymer adhesives. ***